Modular Multiprogramming

Two major goals in multiprogramming research are: (1) to design and understand the modules (e.g., processes or data objects) of a program in isolation, without considerations of interference by the other modules, and (2) to implement the modules on separate processors with a fine grain of interleaving so that no processor is ever locked out of accessing common data for long periods of time. Further, it is essential to devise a model in which the distinction between computation and communication is removed; in particular, the methods for designing and reasoning about the interfaces should be no different from those employed for the computations at the nodes of the network. The project is based on the hypothesis that many of the programming concepts developed for databases, object-oriented programming and designs of reactive systems can be unified into a compact model of distributed programs that meets the desired goals. In the past, much effort has gone into limiting interference among the modules by employing a variety of synchronization mechanisms: locks or semaphores, critical regions, monitors and communication. In this project, no specific communication or synchronization mechanism, except procedure call, is built into the model. Yet, the traditional schemes for communication using bounded or unbounded channels, semaphores, and accesses to shared memory can be encoded as modules. This project uses two distinct kinds of procedures, to model sequential and concurrent aspects of programming. The programming model allows for disciplined interactions between these two types of procedures. The research seeks to: (1) develop the model, in particular for dynamic creations of modules (2) implement the model on top of an existing language, and (3) develop the appropriate formalism to specify and verify the properties of programs.